Acoustic Doppler Methods for Wave Directional Spectra

The objective of this proposal is to develop a commerically available instrument capable of obtaining remote measurements of ocean wave directional spectra. A variety of remote acoustic methods will be evaluated. The proposed instrument would be moored subsurface rather than on stable, fixed platform as is the present technology.